Neural mechanisms underlying novelty-driven foraging and long-term memory

The drive to seek out new information is one of the most fundamental aspects of human learning, shaping how we learn, make decisions, and explore our environment. The brain’s reward system plays a central role in guiding these decisions, shaping what captures our attention and motivating us to keep seeking more information. While decades of research have characterized how explicit rewards—like money or food—motivate information seeking, relatively little is known about how novelty itself drives these behaviors, despite being the primary currency of information seeking in everyday life. This project examines how people seek and process new information, including why some individuals only seek new information with purpose while others do so compulsively, and its impact on learning and memory. By identifying how the brain evaluates novelty and how that shapes both intentional and compulsive information seeking, the findings may carry direct implications for the intersection of artificial intelligence (AI) and education, informing how AI-powered educational tools might be designed to deliver digital content in ways that engage students and better support learning and memory.

The project examines the neural and computational mechanisms underlying information seeking and long-term memory by leveraging explore-exploit decisions as a theoretical framework. Foraging theory predicts that individuals weigh the diminishing returns of a current environment against the potential value of switching to a new one. While these theoretical frameworks have been centered around seeking food or money, it also maps naturally onto how people navigate streams of digital content varying in conceptual novelty. The project tests the hypothesis that novelty functions as an intrinsic reward signal that drives explore-exploit decisions, engaging mesolimbic dopaminergic circuits including the ventral tegmental area, ventral striatum and hippocampus. Moreover, this research examines individual differences in motivational orientation, ranging from intentional to compulsive engagement. Specifically, the project aims to establish whether compulsive information seeking reflects a shift towards nigrostriatal circuit engagement, resulting in reduced sensitivity to novelty and impaired memory encoding. Participants’ real-world behavior and laboratory-based digital foraging tasks can characterize how explore-exploit decisions interact with motivational orientation to shape what people learn and remember. The project then aims to integrate computational modeling and neuroimaging to identify the underlying neural mechanisms driving these behaviors.